Science and Mathematics Education Reform: What do Parents Need to Know to Get Involved? (A Planning Grant)

9550550 Kass The American Association for the Advancement of Science is requesting a planning grant of $49,845 to support a one-year planning effort that involves front-end research and a series of parent focus groups. This initiative will help to design a national undertaking to stimulate parent involvement in science and mathematics education. Anticipated outcomes include: a widely published review paper that will summarize the research literature and current parent involvement projects, and that will suggest promising strategies to increase parent involvement in science and mathematics education and; a major initiative, spearheaded by AAAS, to develop parent involvement activities and programs that can be linked to AAAS's community-based science projects and other projects nationwide.